Schroedinger-Einstein Correspondence, 1935

This project will identify, catalogue, photocopy, translate and archive correspondence among Schroedinger, Einstein, Born, Pauli, von Neumann, Teller and possibly others concerning the Einstein-Podolski-Rosen paradox. The Pi will also seek missing correspondence between Schroedinger and others on this matter and will publish the translated materials, with annotations that place the problem in the context of contemporary science. Finally, the project will compile, catalog, translate and annotate Schroedinger's manuscripts on this topic.